U.S.-Japan Cooperative Science: Metabolic Control by the Brain: Signals, Sensors and Pathways

9603310 Foster This award supports a three-year collaborative research project between Professor Douglas Foster, University of Michigan at Ann Arbor and Professor Kei-ichiro Maeda, Nagoya University in Japan. The researchers will undertake studies of the metabolic control of the reproductive system by the brain: signals, sensors and pathways. The goal of the project is to unravel how metabolic signals reflecting energy state are sensed centrally or peripherally and routed through neural pathways in the brain to regulate the specialized neurons which secrete gonadotropin-releasing hormone, the neuropeptide that controls the entire reproductive system. This collaborative research is being driven by fundamental questions relating to nutrition, growth, and reproductive activity. The research may lead to determination of the sensors and pathways by which glucose and Leptin regulate gonadotropin-releasing hormone secretion during development and adulthood. Through the exchange of ideas and technology, this project will broaden our base of basic knowledge and promote international understanding and cooperation. ***